A multi-parameter physical-chemical sensor suite on SeaCycler for determining the carbonate system, net community production, and air-sea fluxes

The net annual flux of CO2 into the ocean helps mitigate climate change, and the transfer of oxygen and organic carbon into the deep sea fuels its vast ecosystem. Linked to that, and equally important, is the net community production (NCP) since it represents the source input at the bottom of the ecosystem food chain, governs the vertical carbon export into the deep ocean, and also has a large controlling influence on the air-sea fluxes of CO2 and O2. The transfers of carbon and oxygen in the water column, their exchange with the atmosphere, and NCP are controlled by both physical and biological processes which vary greatly on seasonal and shorter time-scales, and also interannually. Rates and controlling processes at high latitudes have special significance but are poorly studied and understood, in part due to logistical and technological difficulties. In order to constrain or even fully determine the air-sea fluxes and NCP with in-situ measurements, usually assumptions need to be made since autonomous sensors currently cannot observe the full suite of quantities required for closing the relevant budgets. However, recent and ongoing developments now offer a mix of sensors, partially in prototype form, which could be deployed on the moored profiling system "Seacycler" and which could allow simultaneous determination of net community production (NCP), of the air-sea flux of CO2, and the construction of budgets in important regions of the global ocean.

This research will acquire and fabricate an innovative suite of commercially available and prototype sensors and equipment, in order to integrate and exercise them on SeaCycler in a hierarchy of tests. The goal is to collect sufficient data with these sensors on SeaCycler to demonstrate a) their reliability, b) the functioning in profiling mode on SeaCycler, c) their accuracy, d) the ability to determine total dissolved inorganic carbon (DIC) and calcification (removing the normally made assumptions about Redfield ratios), e) the utility of turbulence profiles in distinguishing mixing vs mixed layers (important for budgets and the role of blooms), f) the robustness of SeaCycler itself. These efforts will lay the foundation for year-long open-ocean deployments of SeaCycler with a suite of accurate and tested sensors to determine the magnitude and variability of the air-sea flux of CO2 and O2 in high-latitude regions such as the Labrador Sea and of the storage/export of DIC and O2 in newly formed water masses. The new capabilities would allow calculation of the magnitude of NCP entirely using biogeochemical budgets, and to capture the physical/chemical controls of its sub-seasonal to inter-annual variability. It is expected that the effects of calcification on carbon budgets and air-sea fluxes can be quantifiable, by observing both CO2/pH and DIC/AT changes with high temporal resolution. The work will bring to bear several technologies developed under NSF OTIC grants, and leverage NSF OOI technology. The new technology will allow experiments to develop algorithms to reduce uncertainty in float and satellite observations. The observations enabled would also be crucial for testing numerical models which simulate biogeochemical processes, air-sea fluxes, and NCP.